Symbolic Topology in Two and Three Dimensions

DMS-0308840
Tibor Beke

This is a CARGO incubation award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02155/nsf02155.htm.
The main motivation of this project is computational cartography. The
underlying mathematical observation is that symbolic map layers are
isotopy invariants. Transcribing the topological information that resides
in a map amounts, in practice, to specifying an isotopy class of nested,
labelled planar graphs. The deliverable of this project is a portable
specification language for doing that. While the case of two-dimensional
planar configurations is essentially solved, its extension to surfaces of
higher genus is of interest even as fundamental research. Its importance
is also highlighted by its connection to the description of solid bodies,
such as those encountered in computer-aided design.

Present-day Geographic Information Systems tend to treat maps as
superimposed layers of graphic images. But a map also contains
information that is topological, meaning, metric-independent. Examples of
this are road or other infrastructure networks, where one is only
interested in the connectivity between certain nodes, and rough
qualitative features of the lines connecting them. The storage, indexing
and transmission of this symbolic topological information may be both more
important and easier than that of the entire graphical image. The authors
outline an algorithm for schematic rendering, and a method of attacking
the map isomorphism problem, where by map one may mean both actual images
and maps encoded by their proposed scheme. Both of those ideas, however,
are in need of experimental verification.